Workshop on Statistical Mechanics and Protein Structure, Aspen Center for Physics, August 22 - September 11, 1994

9410875 Appelquist This award provides partial support for the Workshop on Statistical Mechanics and Protein Structure; Aspen Center for Physics: August 22 through September 11, 1994. The funds will aid younger scientists, as well as members of under-represented groups to participate in the Workshop. % % % % This award provides partial support for the Workshop on Statistical Mechanics and Protein Structure; Aspen Center for Physics: August 22 through September 11, 1994. The funds will aid younger scientists, as well as members of under-represented groups, to participate in the Workshop. ***